High Resolution IR Stratospheric Spectral Atlas and Laboratory Spectroscopy

The goal of this project is to extend the University of Denver atlas of high-resolution (approx. 0.002 cm-1) infrared solar absorption stratospheric spectra and the corresponding laboratory and theoretical studies initiated under previous NSF grants. The currently published high-resolution stratospheric atlas covers several intervals between 800 and 2060 cm-1. For each interval, accurate line positions with molecular and atomic identifications are tabulated.
The major objectives of this research are: 1) to extend the 0.002 cm-1 resolution atlases over additional intervals in the 2.5-30um region, mostly with solar and laboratory spectra already obtained, and new spectra anticipated to be obtained in 1999-2001; 2) to extend the spectroscopic analysis of specific stratospheric molecules, such as ozone, nitric acid, chlorine nitrate, carbonyl fluoride, nitrogen dioxide, molecular oxygen, and others, from the laboratory and the stratospheric spectra.